Analysis of Galileo Imaging of S-L9 and Relation to Earthbased Observations

95-26292 Chapman As part of NSF-funded follow-up studies of the Comet Shoemaker-Levy 9 impact on Jupiter in July 1994, Dr. Chapman will focus on the luminous first seconds and minute of the fragment impacts -- when the fragment kinetic energies were converted into complex explosions, from which all other observed phenomena ensued. The basis for his investigation will be imaging data obtained with NASA's Galileo spacecraft, combined with other relevant earth-based data sets. As part of this work, Dr. Chapman and his team will reduce the full Galileo imaging data set. The investigation's chief objectives are to understand the origin of the spikes in the impact light curves. Questions that Dr. Chapman will address are these: "Are the spikes due to the crashing of the comet fragments?" "Were there additional fragments, in addition to the roughly 20 major ones?" "Can the spikes be explained by multi-component models for the comet fragments?" **